Research Initiation: High-Frequency Resonant-Tunneling Device Employing Metal Multilayers

The work is in the field of submillimeter wave detectors. A multiple-layer metal/insulator device of the form MBMBMBM is prepared. Because of the triple-barrier configuration, two metal layers are isolated to form a dual quantum-well structure. In theory, such multiple-quantum-well, or resonant tunneling devices show prominent region of negative resistance phenomena, and fall short in terms of both the expected magnitude and definition of negative resistance features. To ameliorate this situation, efforts are underway to employ state-of-the-art, thin-film deposition techniques to individually prepare and obtain optimal characteristics of both metal and electron-barrier films; and to use superconducting test studies of metal/barrier layers to assure the firmation of high quality electron tunnel barriers.